Radio Astronomical Observations

This award provides travel funds to the Principal Investigator and her student to observe with the 100 meter radio telescope in Bonn, West Germany. The Principal Investigator was a regular user of the National Radio Astronomy Observatory 300 foot telescope before its collapse. This award will allow some of the research in progress to be continued.